Use of Halophilic Organisms to Treat Highly Saline Wastewaters

This is an award to support research on a biotechnological process for removal of organic substances from highly saline wastewaters produced in manufacturing chemicals such as pesticides, herbicides and polyhydric chemicals. The process being studied is conducted in a periodically operated sequencing batch reactor within which halophilic microbes are suspended. They also become attached to the exterior of gas-permeable silicone tubing that is submerged in the wastewater and through which oxygen is passed. The oxygen required for respiratory needs by the biofilm diffuses through the tubing and into the biofilm. Saline wastewaters resulting from industrial processes have the potential for being made less environmentally damaging by a process that removes organic contaminants from them before being reused or discharged to the environment. Results of this research are expected to provide the basis for engineering design of an innovative biotechnological process for treatment of highly saline wastewaters such as those produced in the manufacture of pesticides, herbicides and polyhydric chemicals. ***